Computer Science Teacher Education Laboratory

This project uses a specialized computing laboratory to support a Computer Science Secondary Teacher Certification program. The Computer Science Teacher Education Lab includes a mixture of the IBM-PC family as well as Apple II/Macintosh series of computers. Using this collection of equipment, prospective teachers are exposed to hardware and software that is pervasive in industry, business, education and in homes. The laboratory is used as an integrated applications environment in the curriculum for teachers of computer science in the secondary schools. The courses in this program demand extensive and active laboratory experiences in order to prepare prospective teachers for an effective classroom environment. This award is being matched by an equal sum from the grantee.